String-related structures in homotopy theory

The overall theme of the investigator's research is the application of
homotopy theory to other areas of mathematics and to physics, in
particular to the understanding of strings and similar structures. Among
these structures, most directly related to of string theory is conformal
field theory, which also appears to be closely connected to elliptic
cohomology. This in turn has implications in the area of automorphic
forms, and relations with Borcherds' Moonshine module. There is also a
remarkable connection with the absolute Galois group of Q, through
Grothendieck's program of dessins d'enfants, and the action of
Grothendieck-Teichmueller structures on the formalism that make up
conformal field theories. By way of analogy, studying the space of loops
in a topological space leads to the string topology, which is closely
related to operads and deformation theory in more abstract contexts. To
approach these questions, the investigator uses categorical Koszul
duality. Related to Koszul duality is the notion of Grothendieck/Verdier
duality in various contexts, which led back to A^1- and equivariant stable
homotopy theory, including Real-oriented homotopy theory. This is directly
analogous to the A^1-homotopy theory constructed by Morel and Voevodsky.

-------------------------------------

The overall theme of the investigator's research is the interaction
between the area of algebraic topology in mathematics, and string theory
in physics. String theory emerged in physics in the 70's and 80's as a
theory providing new hope toward gaining a unified theory of all the
forces of nature; its basic idea was that the fundamental units of the
universe are not point-like particles, but tiny one-dimensional strings,
which may form a closed loop, or may be open (with two endpoints). The
theory since underwent a tumultuous development in which many additional
structures emerged. Today it is still believed in physics that the
unification program may be facilitated by some theory closely related to
structures discovered by string theory. Despite the long history, many
fundamental aspects of string theory are not well mathematically
understood, which, it seems, has somewhat hindered the physical theory.
The investigator studies some of these issues both directly, and by way of
analogy and connection with similar structures elsewhere in mathematics.
Topology can be thought of as geometry in its purely qualitative aspects.
In particular, algebraic topology has built up many powerful methods for
studying topological spaces, by associating to them certain
algebraic/numerical invariants. In physics, spacetime itself can be
considered as a topological space. However, to understand strings in
spacetime, one needs to study not only the points in topological spaces,
but loops in such spaces, which can be thought of as models for strings.
The investigator studies the structures arising from the space of loops in
topological spaces. This includes conformal field theory and string
topology, as well as certain structures from the area of algebra, such as
operads and Hochschild cohomology. The investigator also considers the
structures arising from loops in certain purely abstract, general context,
for instance that of categorical Koszul duality.